Developing Flow and Heat Transfer Near a Suddenly Heated Horizontal Surface

In this project, additional insight is sought into the complex flow and transport near a suddenly heated horizontal surface. The results will provide a better understanding of important thermal phenomena in engineering applications as well as in atmospheric circulation and circulation in oceans, lakes, and ponds.